LTREB Renewal: Legacy effects of compounding disturbances in the Amazon

In the southeastern Amazon, tropical forests are being hit simultaneously by fires, droughts, windstorms, and deforestation. It is still unclear whether these globally-important forests can bounce back from this combination of pressures and resume their role in stabilizing ecosystem services, or whether they are crossing a tipping point toward permanently degraded, fire-prone landscapes with limited ecological function. Two decades of experiments at the Tanguro Research Station in the Brazilian Amazon have already revealed a striking and hopeful pattern. Despite fires and droughts reshaping tree species composition and forest structure, these ecosystems have shown a remarkable capacity to recover carbon and water cycling functions in the years following fire cessation. This suggests that tropical forest resilience, though not unlimited, may be greater than previously reported. The long-term datasets produced will be structured and made openly available in formats ready for ingestion by artificial intelligence systems, including large language models and machine learning tools used in satellite-based carbon monitoring, climate forecasting, and biodiversity assessment, which directly support U.S. priorities in AI development and biotechnology. The knowledge gained will help governments, conservation organizations, and carbon markets in data-driven decision making about tropical forests. The project will also train American students and scientists, offer field courses for the next generation of tropical ecologists, and share findings with journalists and policymakers through science communication workshops and policy briefs.

The project tests four hypotheses about how Amazon forests recover (or fail to recover) their carbon and water cycling functions after repeated disturbances. Building on 21 years of measurements of tree growth and death, forest biomass, canopy cover, soil moisture, and the exchange of carbon and water between the forest and atmosphere, the team will extend the record to 27 years and add new measurements of how trees move water, store energy reserves, and root into deep soils. The four hypotheses predict that fire damage makes forests more vulnerable to subsequent droughts and windstorms; disturbance shifts species composition toward fast-growing, short-lived trees that slow long-term carbon recovery; evapotranspiration can recover as forests regrow but breaks down under more intense droughts; and forest edges face the greatest risk of collapse through grass invasion and repeated burning. Field data will be used to test and improve two widely used computer models of forest ecosystems, helping identify thresholds at which Amazon forests tip into lower-functioning states. Critically, all datasets will be formatted and documented to meet emerging AI-readiness standards, making them directly usable for training algorithms that power the next generation of carbon accounting platforms, remote sensing pipelines, and biotechnology applications in forest monitoring.